Acquisition of a Compact Scanning Electron Microscope System for Research and Teaching in Geosciences

1029020
Murowchick

This grant supports acquisition of a scanning electron microscope (SEM) equipped with an energy dispersive spectrometer (EDS) to permit micron-scale textural and elemental mapping of solid materials for research and research training in geology, mineralogy, geoarchaeology, paleoclimatology, and environmental science. Faculty at the University of Missouri Kansas City Department of Geosciences maintain an active role in K-12 outreach through established programs of teacher training and mentoring of urban students in geosciences and the SEM will foster enhanced development of those activities The instrument will also serve as a regional facility in support of collaborations with scientists from the U.S. Environmental Protection Agency, U.S. Geological Survey, U.S. Army Corps of Engineers, and geotechnical firms.

***